U.S.-Ghana Cooperative Research: A Rational Approximation in Strictly Pseudoconvex Domains

This proposal requests funds to permit Dr. Clement H. Lutterodt, Department of Mathematics, Howard University, and Dr. Patrick W. Darko, Department of Mathematics, University of Ghana, to pursue, for a period of 24 months, cooperative research on a rational approximation in strictly pseudoconvex domains. They will study and attempt to resolve problems which have grown out of attempts to extend the generalization of the Montessus de Ballore theorem in a ball to other strictly pseudoconvex domains. The field of several complex variables is a central one in modern mathematics with ties to differential geometry, physics, geometric measure theory, algebraic geometry, and others. The two collaborators are well suited by training and previous research to engage in this research. In addition to the immediate scientific benefits expected from this work, this project may help strengthen the research efforts in complex analysis at both of the cooperating institutions. The U.S. PI will give seminars at the University of Ghana on his recent results in meromorphic approximations. The research and these seminars have the potential for strengthening the S&T infrastructure in Ghana by stimulating in Ghanaian students an interest in mathematics research. This project is relevant to the objectives of the Science in Developing Countries (SDC) Program which seeks to strengthen SDC scientific infrastructure and increase the level of cooperation between U.S. scientists and engineers and their counterparts in developing countries through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit.